Evolution and Use of Symbols in Undergraduate Mathematics: Theory and Practice

We PI proposes a symposium over the course of one year, to be held at the University of Massachusetts Dartmouth, that brings together a select group of seminal thinkers in symbolic cognition in undergraduate and high school mathematics, for the purpose of establishing a research agenda in this new line of inquiry in Algebra. Symbolic cognition in mathematics is concerned with the evolution and use of mathematical symbols, especially their practical side - the specific cognitive and communicative roles that symbols play in helping people to do mathematics and learners to learn undergraduate mathematics. The major impact of these meetings will affect university teachers of introductory mathematics, high school mathematics teachers and researchers in mathematics education.